Research Experiences for Undergraduates in Chemistry at Ithaca College

Professor Heinz Koch and members of the Chemistry Departments at Ithaca College and Cornell University are being supported to continue a Research Experiences for Undergraduates (REU) Site in Chemistry. For the period 1990-92, seventeen (17) undergraduate students will spend ten (10) weeks each summer actively engaged in a variety of research projects. Projects range from electrochemistry and biosynthesis to synthesis of solid state and polymeric materials. Local student participants will have the opportunity to continue their research projects during the academic year.